Collaborative Research: Acoustic Imaging of Seafloor Hydrothermal Flow Regimes

This project will adapt a sonar system for acoustic imaging of hydrothermal flow regimes for use on the ROV Jason. The sonar system will be used to image, map and quantitatively measure hydrothermal plumes and diffuse flow over a range of spatial and temporal scales on the main Endeavour vent field on the Juan de Fuca Ridge. Advanced computer visualization and analytical methods will be used to identify, extract and measure parameters of plumes and diffuse flow to determine mising and dispersl behavior of these flow regimes.